Pre-College Analytical Chemistry (PAC)

This project, supported in the Analytical and Surface Chemistry Program, seeks to create, stimulate, and sustain interest in science among sophomore and junior level high school students by providing them the opportunity to take an intense, college-level lecture and laboratory course in analytical chemistry. Professors Mildred Smalley and Robert Miller of the Department of Chemistry at Southern University in Baton Rouge will lead a course for approximately sixteen high school students with assistance from two high school chemistry teachers. The course will use problems in environmental chemistry to illustrate principles of analytical chemistry and to convey to these students a sense of the excitement that is attendant to careers in chemistry. This project is aimed at attracting underrepresented minority student into successful careers in science. An intense college-level course in environmental analytical chemistry will be made available on a competitive basis for some sixteen high school sophomores and juniors from the Baton Rouge area. Two high school chemistry teachers will serve as teaching assistants in this course. Particular attention is given to attracting underrepresented minority students to science pursuits and to enhancing the likelihood of their future success in scientific careers.